Integrating Redox-Wired Nanoparticles into Nanoporous Anodic Alumina

With the support of the Industry/University Cooperative Research Center for Ceramic and Composite Materials at the University of New Mexico, Eastern New Mexico University will perform a research project focusing on the possibility of integrating metal particles via redox molecular linkers. The goal is to create templates for the creation of novel switchable nano-devices. This research is complementary to the ongoing research programs at the Center and has potential to lead to new developments in molecular electronic and photonic devices which are of interest to industry.